A Proposal for Building an Interactive Software System for Scientific Computation on Supercomputers

This proposal provides an improved computational environment for supercomputers. Such tools for supercomputers help scientists and engineers create better models for a large number of complex problems. One such tool called CLAM has already been demonstrated as a useful product and phase II of this proposal implements CLAM on Cray X/MPs, one of the fastest machines yet available. The whole idea behind CLAM is to automate a number of important computer facilities so that a scientist code is optimized and the programmer's time has been shortened.